Metabolic Organization in Neurospora

This project supports research that will characterize the structure and assembly of the mitochondrially localized feedback sensitive enzymes of arginine biosynthesis in Neurospora crassa and investigate the regulatory implications of this localization. The first seven biosynthetic enzymes, including the feedback- sensitive enzymes, acetylglutamate synthase and acetylglutamate kinase, are localized in the mitochondria. The structure and membrane topology of acetylglutamate synthase will be determined to test various hypotheses concerning the mechanism by which cytoplasmic arginine feedback inhibits this mitochondrial enzyme. The structural and functional relationships between acetylglutamate synthase, acetylglutamate kinase and acetylglutamyl phosphate reductase will be investigated to evaluate various models for coordination of feedback inhibition, enzyme synthesis and assembly. The specificity, kinetics, energetics, and regulation of metabolite trafficking and the possible relationships between mitochondrial, plasma and vacuolar membrane transport systems will be investigated. The components of the transport systems will be identified by conventional biochemical methods or by labelling with photolabile amino acid derivatives. Attempts will be made to isolate and characterize mutations affecting their function. The results will be of significance in understanding metabolic regulation and the assembly of the mitochondria (and other organelles) in eukaryotic cells. Organelles such asmitochondria, lysosomes, and peroxisomes carry-out specialized functions. In some cases, they also serve as localized sites of specific metabolic processes which do not have any obvious relationship to the specialized functions of the organelle. Thus, a variety of amino acid biosynthetic reactions take place in the mitochondria of certain fungi and some reactions of the urea cycle occur in this same organelle in mammals. Although some general hypotheses have been advanced to explain this compartmentation phenomenon (e.g. conservation of solvent capacity; isolation of potentially reactive intermediates; or separation of potentially competing reactions), its exact physiolocial significance is not fully understood.